High-speed electro-optic metasurface wave-shaping and beam steering using van der Waals nanomembranes with giant Pockels coefficients

Non-technical description
The prospect of sensing & displaying three-dimensional (3D) moving images will no doubt evoke memories of countless science fiction films. However, many important applications exist for dynamically tailoring volumetric light fields beyond displaying holographic videos. These include laser-based ranging (LiDAR), various forms of super-resolution microscopy, atom/ion trapping and manipulation, classical and quantum computing, and even space-division-multiplexed telecommunication. Although spatial light modulators (SLM) - the technology underpinning 3D holographic light shaping - have matured to the point of commercialization, their low (~100 Hz) frame rates, while suitable for faithfully reproducing a continuous visual experience, are severely limiting for many other use cases. Lifting this constraint with picosecond timing resolution would unlock new high-speed regimes for automated vehicle operation, real-time neural mapping, deep trapped atom/ion quantum circuits, and packet-switchable data center switch fabrics. To enable these and other exciting possibilities, this project will simultaneously address key bottlenecks faced by dynamic wave shaping technologies - namely, electrical efficiency, optical efficiency, and programming speed - by combining innovations in nanomaterial growth and nanophotonic design.
The project will lead to SLMs that match the optical efficiency and resolution of liquid crystal versions while operating more than a million times faster and yet consuming a fraction of the electrical power. Aside from boosting the speed of existing technologies, like LiDAR, super-resolution microscopes, and data center switch fabrics, the proposed work may open new opportunities where high-speed holographic light shaping is not currently practical, such as health care, remote tactile education, and personal safety and security. Similarly, exploration of ideas at the forefront of optical science, such as photonic time crystals, temporal refraction/reflection, and nonmagnetic nonreciprocal light steering, will benefit from the strong and rapid spatiotemporal modulation of infrared light that will be realized through this project. Aligned with the research mission of bringing high-performance electro-optical modulation to more devices, more applications, and therefore more people, the PIs will provide hands-on optical and materials engineering training and optical technology exposure to a wide range of students. This training will take the form of specialized undergraduate modules and research projects, as well as optical sensor workshops for high school students.

Technical description
This project will involve the development of technology capable of high-resolution programmable light wave shaping at unprecedentedly high speeds. This extreme performance will be driven by a combination of long-lived nanoscale photonic resonance and novel techniques for growth and device integration of high-quality electro-optic materials. Specifically, we will grow single-crystalline Barium Titanate (BTO) nanomembranes and transfer them to arrays of silicon metasurface pixels. Giant Pockels coefficients over 1300 pm/V are found in bulk BTO crystals, while typical thin film growth procedures result in a much weaker electro-optic response with increased scattering loss. To avoid the large defect densities that greatly degrade the material coefficients, large-area single-crystal BTO films will be prepared on optical parent substrates and then delaminated into freestanding nanomembranes for van der Waals (vdW) integration. A remote epitaxy technique recently developed by PI-Bae’s group will be used to transfer pristine films onto nanostructured samples. Given that the electro-optic (EO) material coefficient of crystalline BTO is 30× larger than lithium niobate, record-breaking EO devices can be expected. However, the absolute EO index modulation will still be small. To bring the required drive voltages down from kilovolts to volts, we will leverage nanophotonic engineering of BTO loaded silicon cavities to suppress radiation leakage and trap light over thousands of optical cycles. After simultaneously squeezing the resonant modes into deep sub-wavelength volumes, our high-quality-factor meta-atoms will become incredibly sensitive to tiny changes in refractive index – representing ideal phase programmable pixels for dynamic wavefront manipulation. The power of the proposed platform will be demonstrated via proof-of-principle beam steering and diffraction switching experiments for 3D imaging and ranging, with an emphasis on surpassing state-of-the-art field of view, diffraction efficiency, and angular resolution.